Drosophila Species Stock Center

This award continues support for the University of California Species Stock
Center, a collection of living stocks of Drosophila species. The living
collection consists of over 1000 strains representing approximately 250
species of the small insect commonly referred to as the fruit fly. Project goals
are to provide live flies to researchers and educators at a charge that helps
defray operating costs. The whole genomes of 14 Drosophila species have
been sequenced which has driven the use of these species by the biological
community including researchers in behavior, neurobiology, development,
genomics, ecology, physiology, immunology, and systems biology. Growth in
the collection includes addition of newly collected wild type strains and
addition of transgenic strains for those species whose genomes have been
sequenced.

These species provide unprecedented opportunities to study basic biological
processes common to many species, including humans. In addition to
enabling research, the Stock Center provides samples for educational uses in
high schools, colleges and museums. The Stock Center also conducts an
annual workshop for students and researchers wishing to learn more about
the varied species in the collection and to acquire the special knowledge
needed to work with them.